ANYWHERE, ANYTIME, ANYSIZE, ANY SIGNAL: Scalable Remote Information Sensing and Communication Systems

Several recent meetings have highlighted the growing interest in the
biological, ecological, environmental, and other research communities
in the development and deployment of large distributed systems for
information collection, aggregation, analysis, simulation, predictive
modeling and realtime analysis within their respective disciplines.
Likewise, recent events have caused concern and raised interest in the
need for similar systems in the context of homeland security. It seems
apparent that a structured discussion of the needs for these systems
could create opportunities for synergistic efficiencies between the
various user communities. To date, however, no such discussions have
been held among these differing user communities, nor among these
communities and the groups providing and developing technologies to
support their needs.

It is with the possibility of identifying such potential synergies
that the Multi-Sector Crisis Management Consortium (MSCMC) is
organizing a series of workshops to discuss the design, development
and deployment of such systems "From Sensor to Supercomputer and Back:
Systems for Information Collection, Aggregation, Analysis, Assessment
and Realtime Simulation." To begin exploring these synergies, MSCMC is
proposing the following workshop.

The purpose of this workshop is to summarize the current and projected
states of sensor, communication and power technologies for collection
and communication of information from distributed sensor systems with
large numbers of nodes, and to survey the present and expected needs
for such systems in environmental, facility, medical, crisis
management, public safety and national security arenas. A succinct
summary of the current and projected technologies mapped to current
and projected user requirements is envisioned to result from this
workshop.

This workshop will bring together experts in field sensor, processing,
wireless, field power source technologies, to structure solutions for
the common problem of collecting and communicating data, including
from remote field locations, by cost-effective, scalable, integrated
devices and networks.

The workshop will examine the user needs and technologies involved in
field deployable systems for information gathering including
sensors, wireless communications and power supplies, up to the local
aggregation point. While the integration of "locally" gathered
information into larger infrastructures for purposes of analysis is
also required, such integration is beyond the specific focus of this
workshop.

It is intended that this two day workshop will produce:

(1) understanding by participants of the current state of the art
and availability of technologies of sensors, power, integrated
circuits, and wireless, and how they may be employed in our
society.

(2) determination of current and future needs for better
capabilities

(3) suggested courses of action to integrate available
technologies into scalable, reliable, cost-effective devices and
networks of value to meet those needs, including for both the
general scientific and research community and to government
agencies seeking better ways to protect the public from chemical
and biological incidents

(4) proposed design and production of devices not now available
or suitable for the above purposes

(5) recommendations for regulatory relief, especially for design,
manufacture, and use of workshop-proposed wireless technologies
for the above purposes

(6) recommendation for further work in these ares, and
identification of potential collaborations and partners.